RUI: Hadron Structure and Lattice QCD

Theoretical research at the interface of elementary particle and nuclear physics will investigate a new set of calculational techniques, called charge overlap, on computers at the National Center for Supercomputing Applications (NCSA). Charge overlap techniques have the potential to allow us to do precise, controlled and complete calculations of the internal structure of particles composed of quarks and antiquarks. Using these methods, the internal structure of pions and other mesons will be investigated from first principles. In addition, using more traditional computer simulation techniques, an improved calculation of the neutron's electric charge distribution will be made. This calculation is particularly significant because of it's relevance to the experimental program at the Continuous Electron Beam Accelerator Facility (CEBAF). CEBAF will eventually make the world's most precise measurements of this distribution; theory and experiment can then be compared in a meaningful, fundamental way.